Enhanced Learning in the College Economics Curriculum through Computer Assisted Instruction

Increasing the effectiveness of teaching through the increased utilization of computerized learning is the objective of a project being implemented in the Economics Department at Western Illinois University. A multi-user multiprocessor computer and specialized software is being used to expand and enhance the capabilities of the Department's Advanced Learning System (ALS) that provides students with a choice of the manner in which they learn. In addition, the incorporation of new analytic software packages into upper-level courses and the Honors Program is providing "hands-on" computer experience for students preparing for specific careers. Significant improvements in undergraduate instruction in economics are being implemented.